New Polyamides with a Protein-Like Structure

This work is directed toward the design of novel polyamides based on the incorporation of sequential and mimetic residues, similar to those found in proteins. The research expects to find new structures which can form biomaterials. The polymers are mimetic structures related to or different from those present in standard nylons and proteins. For the characterization of these polymers, Fourier transform infrared spectroscopy, circular dichroism (where applicable), solution and solid-state nuclear magnetic resonance, electron microscopy and fiber diffraction techniques will be employed. The researchers will also utilize computer simulations to determine the preferred conformations for the polymers and model compounds. The goal is also to design and synthesize a series of optically active polyoxazolines. These polymers represent a broad class of novel peptidomimetic structures. The conformations of these macromolecules and their model compounds will be examined. Both sequence copolymers and the polyoxazolines should have potential uses as sutures, biomedical devices, and drug-delivery matrices. Through a study of structure, conformation and properties, the researchers hope to develop new classes of peptidomimetic polyamides. This program has as its objective the preparation and characterization of complex molecular structures that mimic naturally occurring biopolymers.